ITR: Decentralized Streaming Architecture (DSA) for High Capacity Systems

Conventional computer architecture has been based on and dominated by the
capacity poor systems we were forced to build 20 and 50 years ago. For
over three decades, the Instruction Set Architecture (ISA) has formed the
basic architectural abstraction for scalability. As wonderful as the ISA
abstraction has been, its range of utility is coming to an end. Our
systems have grown orders of magnitude in size and speed, and many of the
simplifying assumptions which underly the ISA are limiting forward
scalability rather than enabling them. This effort explores a
reformulation of our basic assumptions and machine abstractions to
accommodate the large capacity computing systems we can now build. Whereas
the sequence of primitive instructions was the core fixed point in ISA
model, this effort proposes stream-connected graphs as the model fixed
point for these Decentralized Streaming Architectures (DSA). This way
communication is abstracted directly in the architecture facilitating
parallelism and optimization for physical locality. DSA will give us a
single, unifying system model for future computing systems which scales
from modest, single-chip, single-processor systems, to multiprocessor ICs,
to a wide range of heterogeneous System-on-a-Chip designs, to large-scale,
heterogeneous, multi-component systems that evolve over decade long
lifecycles.